Electronics Upgrade of an NMR Spectrometer

This proposal is a request for funds to upgrade the electronics and the data processing capability of an existing nine- year-old Bruker WM-400 MHz nuclear magnetic resonance (NMR) spectrometer. The five chemistry research groups that will be the principal users of this instrument require NMR as an aid in their organic and inorganic synthetic programs to identify products and to determine product structures. The proposed work requires a modern multinuclear NMR spectrometer with variable temperature and sophisticated pulse control for current and future 2D FTNMR experiments. The current instrument, which is the only research grade NMR on the campus at Kansas State University, is nearly maximally booked, has a limited, obsolete data processing and data storage system, and is encountering increasing difficultes in providing decoupled spectra or in performing DEPT, NOESY, and COSY experiments upon demand. Two of the four principal users are currently supported by awards from the National Science Foundation. Other faculty in the departments of Chemistry, Biochemistry, Foods and Nutrition and Grain Science will also benefit from this upgrade and they are listed as "other" users. %%% This proposal will assist in the purchase of a modern nuclear magnetic resonance (NMR) spectrometer. This instrument is an essential tool for faculty members at Kansas State University engaged in chemical research. The instrument provides important information which in most cases can be used to determine the geometric and/or molecular structure of newly synthesized molecules.